Automatic Control and Data Acquisition in Materials Testing

This project results in an upgrade to a 60 Kip Baldwin Testing Machine to allow automated control and data acquisition. The laboratory experience will be modified so as to incorporate the teaching of creep in wood beams to sophomore civil engineers.